Collaborative Research: Cognitive and Physiological Effects of Stereotypes on Problem Solving: Causal Mechanisms and Prescriptive Measures

The failure of large groups of students to perform to their potential.such as females in
math, or African Americans across a variety of academic disciplines.is one of the great
tragedies in our educational system. The significance of this problem has inspired numerous
investigations of its scope, nature, and potential causes. A recent breakthrough points to the
power that social context can have in creating, perpetuating, or eliminating the underperformance
that has hindered these groups. Steele, Aronson, Spencer, and their colleagues have demonstrated
the crucial role of stereotype threat, a situational phenomenon that occurs when individuals who
are targets of stereotypes alleging intellectual inferiority are reminded of the possibility of
confirming these stereotypes (e.g., Spencer, Steele, & Quinn, 1999; Steele, 1997). For example,
Spencer et al. (1999) showed that high-achieving female college students performed significantly
worse than males on a standardized math test when the stereotype about their math ability was
made salient (.Males have performed better than females on this test in the past..). However, this
gender gap was eliminated simply by changing the words used for introducing the test (.Males
and females have performed equally well on this test in the past..). A counterintuitive finding is
that only individuals who are highly identified with success and achievement in given
stereotyped domains are the ones who show deficits under threat, in contrast to stigmatized
individuals who are not achievement oriented in these domains (Steele, 1997). Thus, it is the
people in the vanguard of their group who are the most vulnerable to situations in which
stereotypes about their ability become salient. The detrimental effects of stereotype threat extend
to African Americans (e.g., Steele & Aronson, 1995), Latinos (e.g., Aronson & Salinas, 1997),
and students of low socioeconomic status (e.g., Croizet & Claire, 1998), who are concerned with
academic success.
We hypothesize that the priming of a stereotype results in heightened physiological
arousal. According to the classic Yerkes-Dodson (1908) law of physiological arousal,
performance is optimal at intermediate levels of arousal and decreases when arousal is either low
or high, resulting in an inverted-U shaped function. More recent neurophysiological research has
corroborated and expanded on the classic findings of the Yerkes-Dodson law in animals and in
humans. For example, Lupien and McEwen (1997) provided evidence for an inverted-U shape
relationship between the level of the corticosteroid, cortisol, and cognitive processes in a variety
of animal and human studies. We hypothesize that high-achieving individuals in stigmatized
domains approach a problem-solving task in the given domains with an optimal level of arousal
for performing well. Stereotype threat may interfere with these individuals. performance by
leading to arousal that exceeds an optimal level, causing performance deficits. By trying to
uncover the role of physiological arousal in mediating stereotype threat and the cognitive nature
of the resultant deficits, we are hoping to contribute to understanding the theoretical
underpinnings of stereotype threat as well as to help stigmatized high-achieving students to
overcome its effects. In the psychometric literature, Gallagher (1992, 1998) has shown that
females performed more poorly than males on math-SAT problems that required the use of
meaningful mental short cuts and estimation (versus problems that required standard calculation).
There is reason to believe that cortisol reactivity may be implicated in defaulting to rote
algorithmic versus meaningful problem solving (Forget, Lacroix, Somma, & Cohen, 2000). We
will test interventions for combating stereotype threat by reducing arousal, improving the use of
meaningful problem-solving strategies, and creating a practice of self-affirmation. In sum, the
proposed research is designed to examine: (1) the role of physiological arousal as a mediator of
stereotype threat; (2) whether reasoning becomes more algorithmic and less meaningful under
stereotype threat; and (3) ways in which the detrimental effects of stereotype threat can be
mitigated or eliminated.